Effect of Age on Metabolism in Isolated Skeletal Muscle

This is a Research Planning Grant to enable Dr. Hopp to initiate independent studies aimed at understanding the biochemical aspects of skeletal muscle aging. It is anticipated that this award will help Dr. Hopp obtain the preliminary results necessary to launch an independent research career.